Internal Wave Mixing near Energetic Sources

0099253/Winters

This study examines the role of internal waves in mixing near source
regions of internal waves by studying several different types of
non-linear internal-wave interaction problems. Numerical experiments
will be used to examine three different regimes. The first will look
at the nonlinear cascade of energy between short and long internal
waves in a run-down experiment initialized with a high-energy,
random-phase internal wave field with a spectrum similar to that
postulated by Garrett and Munk. The second set of experiments will
look at energy transfer from internal waves at the frequency of the M2
tide, forced by tidal excursions over topography, to higher frequency
internal waves when that tranfer is catalyzed by the presence of a
background field of internal waves. The third focus is on interactions
between wind-forced near-inertial waves and non-inertial internal waves.
The numerical experiments will be conducted with a three-dimensional,
non-hydrostatic, psuedospectral code. The numerical results will be
compared to field data collected during a variety of prior oceanic and
coastal experiments.